Continuing Partial Support of the Federal Construction Council's Technical Program

This project requests that partial support for the 1989 program of the Federal Construction Council (FCC) from the National Science Foundation in the amount of $22,000 through continuation of Grant No. MSM-8803034*. Addition funding is expected to be provided by other agencies, as indicated in Attachment I. The 1989 FCC program was discussed at a 29 September 1988 meeting of senior representatives of the sponsoring agencies of the FCC (see attachment III). Agency funding commitments as shown in Attachment I were made at that meeting. As indicted in Attachment II, the estimated total cost of carrying out the program is approximately $652,900, which is approximately $48,000 more than funding commitments received to date. Additional funding is being sought. If sufficient funding carry out the program is not received, the program will be reduced accordingly by the FCC Program Committee in consultation with FCC sponsors and the Building Research Board staff. Described in the proposal is the FCC technical program for the period 1 January 1989 to 31 December 1989. The program was developed through a process involving meetings of FCC consulting committees to identify current problems and concerns of Federal agencies, a program planning workshop at which an interdisciplinary group of agency professionals met with the FCC Program Committee to select the most pressing agency problems and to prepare plans for projects to address those problems, a meeting of the FCC Program Committee at which the proposed program for 1989 was reviewed and refined, and finally, a meeting with senior officials for the sponsoring agencies to ensure that the proposed program reflected the concerns of agency managers. Unless otherwise indicted, all projects are expected to be completed during the 12-month period covered by this proposal. The proposed technical program is divided into three parts: advisory studies, information studies, and base activities. The nature of the work expected to be carried out in each part is summarized in the proposal.//